The Effect of Pulsating Flow on the Cooling and Drying Effectiveness of Impinging Jets: REU Supplement

An investigation of the effectiveness of pulsation as a mechanism for enhancing the heat transfer of water and air jets is planned. The study will be primarily experimental, although numerical models will be used for siting thermocouples and for data reduction. High speed data acquisition techniques will be used to obtain transient measurements of surface temperature. Measurements will include the effects of jet velocity, pulsation frequency, nozzle width, and thermophysical properties on heat transfer.